Instrumentation for Modern Physics Laboratory

This project will provide the necessary instrumentation for a comprehensive undergraduate Modern Physics Laboratory course at the University of the Virgin Islands. In addition, several of instruments will be used to enhance the General Physics and Natural Science laboratories. Equipment will allow students to perform experiments such as speed of light, the photoelectric effect, electron spin resonance, and gamma ray spectroscopy. A MacAdios 411 and Macintosh SE will be used in the manipulation and processing of data. The experiments listed (and others presently available) will allow students to use the computer for processing both analog and digital information in an interactive system. A comprehensive Modern Physics Laboratory course is imperative to Physics/Chemistry and pre-Engineering majors. This lab will provide a firm foundation in the fundamentals of modern physics and valuable experience in the use of modern electronic equipment nd the interactive use of computers necessary to students current with technology. The college will match the award with an equal amount of funds.